EAGER: Faster Simulation of Quantum Circuits

This research seeks to accelerate simulation of quantum circuits through symbolic and numerical techniques. Large matrices and vectors arising in quantum-mechanical simulations are represented by graphs and manipulated through graph algorithms.

The intellectual merits of this research include the deployment of new, faster graph algorithms for quantum circuit simulation. These algorithms will be integrated into an established software framework called QuIDDPro. Faster quantum-circuit simulation will facilitate evaluation of new quantum algorithms and quantum communication protocols, support educational activities in quantum information theory, and help in the design of atomic physics experiments.